CAREER: A multi-faceted investigation of the astromineralogy and evolution of dust around low- and intermediate mass evolved stars

CAREER: A multi-faceted investigation of the astromineralogy and evolution of dust
around low- and intermediate mass evolved stars

Abstract

AST-0642991

PI: Angela K Speck

Dr. Speck will study the precise nature of dust grains around low- and
intermediate-mass stars (LIMS) because (1) this is where the dust originates
before being expelled into the interstellar medium (ISM) and participating in
many other astrophysical processes, and thus knowing its initial states will
allow for a more accurate prediction of its fate in and effect on the ISM and
beyond and (2) the environment around most of these LIMS is relatively benign
and thus has simplified chemistry, which facilitates the understanding of the
processes in play. Dr. Speck will use a range of techniques including
spectroscopy, imaging and modeling, incorporating new laboratory data and taking
into account theoretical models and meteoritic studies to provide knowledge of
the nature of dust forming around LIMS. This study will also assess
how dust formation changes with stellar evolution. In this way, the effect of
chemistry and density on dust formation can be determined, allowing testing
and refinement of existing models for dust formation and evolution and which
can be applied to many astrophysical environments.

One of the major problems in investigating circumstellar dust is that it
incorporates so many apparently disparate aspects of the physical sciences
(physics, astronomy, geology, and chemistry). In order to provide a background
and framework for such knowledge, Dr. Speck will introduce an
upper level/graduate astrophysics course in cosmochemistry that will be open to
students from other departments as well. Dr. Speck's research is specifically
designed to involve students at all levels (undergraduate, masters and doctoral)
and therefore breaks down into modular chunks. In this way the research
undertaken also allows for training of students at these various levels.
Dr. Speck will continue her effort to recruit and mentor female graduate
students as well as students from other underrepresented groups.

This award is funded by the NSF Division of Astronomical Sciences